CISE Research Instrumentation

9422092 Medhi This award is to purchase multi-processor computer equipment which will be dedicated to support research in Computer Science Telecommunications Program at the University of Missouri-Kansas City. The equipment will be used for several research projects, including in particular: "Routing and Design of Wide-Area Broadband Networks," "Call Admission for Video Traffic in High Speed Networking," "High Speed Integrated ATM Networking," "Self-Routing and Network Embedding Problems in Parallel Processing," and "Evaluation of the Signaling System No. 7 Protocol for Emerging Services". To conduct these research projects, the hardware platform will be used for solving large-scale network optimization problems, for doing extensive simulation of networks and network protocols, for doing statistical analysis of traffic data, and for solving computing intensive problems in parallel processing. The multi-processor computers with large memories provide a flexible computing environment by making efficient use of resources and making it possible to solve large models in a timely manner, thus resulting in effective research.